Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Mathematics at Virginia Polytechnic Institute and State University will purchase a computing environment which will be dedicated to the support of research by faculty and graduate students in mathematics, in particular the research group on `Modeling and Analysis of Fluids, Interfaces and Amorphous Polymers' (http://www.math.vt.edu/people/renardyy/maa.html).

The equipment will be used for several projects which require the use of parallelized codes, including the following:

`Formulation of moving contact lines for the volume-of- uid scheme,' by Michael Renardy,

`Interfacial instabilities in viscoelastic flows,' by Yuriko Renardy,

`Drop breakup in 3D,' by Jie Li,

`Simulation of a liquid bridge bathed in a surfactant solution,' by Mary Ann Clarke.